Applications of Stochastic Methods in Seismic Engineering Systems

In this research, the variability analysis methods are developed to evaluate the effects of variation in the soil constitutive properties on theseismic ground motions and hence on the response of soil-(embedded) structure systems. The covariance matrices for the stresses, strains, and displacements in the soil and structure regions are analyzed in detail according to first- and second-order approximations. These results are verified against Monte Carlo simulations using a super computer. The algebraic complexities of the formulate depicting the higher-order statistical approximations will be handled by symbolic manipulation languages germain to artificial intelligence procedures. Automated sequential refinements of the final results of the statistical correlations are explored. Further, a set of nonlinear constitutive equations for the soil which are amenable both to finite element analysis and stochastic equivalent linearization are developed.